LMER Coordination

The LMER (Land Margin Ecosystems Research) program addresses the need for research on land-margin ecosystems, those at the interface of continental land masses and coastal oceans. The LMER program is part of the U.S. Global Change Research program supported jointly by the Biological Oceanography Program of the Division of Ocean Sciences and the Long Term Ecosystems Studies Program of the Biological Sciences Directorate. These land margin ecosystems are being affected by direct and indirect results of human population growth, and land use changes. In the future, they may be severely affected by rising sea levels as a result of global climate change. The LMER program is designed to document and evaluate the changes going on at this land sea interface. The LMER program at present is made up of five large multi-investigator, interdisciplinary research projects that emphasize experimental studies, various types of models, and a comparative ecosystems approach. This project seeks to establish and maintain an LMER coordinating office and committee headed by John Hobbie of the Marine Biological Laboratory as chair in order to carry out the many functions necessary for a large interdisciplinary program. The various tasks of the coordination office include: the planning and coordinating meetings for the Steering committee and the LMER scientists to facilitate activities, synthses and intercomparisons within the LMER research projects and coordinating activities with other coastal oriented programs as well as other global change research programs on the national and international level.